Dynamics of Sleep-Wake Regulation

Recent experimental results have identified brainstem and hypothalamic neuronal populations whose neurotransmitter-mediated interactions are proposed to compose a regulatory network for the control of sleep and wake transitions. While there is wide support for the contribution and interactions of specific wake-promoting and sleep-promoting neuronal populations in this network, by contrast, there has been much debate about the network components involved in the regulation of rapid-eye movement (REM) sleep. This project analyzes how the structure of competing proposed sleep-wake regulatory networks determines sleep-wake behavior and dynamics of behavioral state transitions. The researchers have developed a novel firing rate model formalism explicitly including neurotransmitter dynamics that is uniquely suited to model dynamics of the sleep-wake regulatory network. Using a reduction of this formalism, models of the current competing proposed structures for the subnetwork governing REM sleep generation are analyzed to determine intrinsic dynamics dictated by the network structure, and the dependence of those dynamics on subnetwork components. Additionally, state transition dynamics in competing proposed network structures for regulation of wake and sleep states are investigated. Maintaining the reduced model formalism, the focus is on determining the mechanisms by which the competing network structures generate key features of human sleep patterning that will be characterized from experimental sleep recordings. Dynamics of competing model networks, using the full model formalism including stochastic components, are fit to the fine temporal architecture of sleep-wake patterning recorded in multiple species, including rodent, feline, and human, with focus on investigating common dynamic features of sleep-wake patterning and variability in sleep-wake regulatory mechanisms across species. The researchers collaborate with three leading experimental sleep scientists who provide sleep recordings and consultation on the proposed projects.

In mammals, states of waking and sleep are actively controlled by populations of neurons located in the brainstem and hypothalamus. Currently, in experimental sleep science, the interactions of these populations, mediated by primary neurotransmitters, are believed to form a regulatory network for the control of sleep and wake transitions. While there is wide support for the contribution and interactions of specific wake-promoting and sleep-promoting neuronal populations in this network, by contrast, there has been much debate about the network components involved in the regulation of rapid-eye movement (REM) sleep. Experimental investigation of the sleep-wake regulatory is limited by the fact that the outcome measurement, namely sleep-wake patterning, only exists in the intact animal. The experimental techniques available to probe the neuronal regulatory mechanisms are limited to those that can be conducted in vivo without disrupting sleep, or post-mortem studies that can identify anatomy of synaptic projections between populations but not their time-varying interactions that underlie sleep-wake transitions. This project uses mathematical modeling as an investigative tool to bridge the gaps left by these limitations in experimental studies. The modeling studies address the physiologically compelling and currently debated question of the structure of the mammalian sleep-wake regulatory network. Numerous experimental groups have proposed schematics of network structures and provided hypothetical descriptions of how network interactions drive behavioral state transitions. However, static conceptual models lack the ability to replicate time dynamics of transitions between sleep-wake states or to determine dynamic interactions inherent to network structure. Construction and analysis of mathematical models of these proposed networks identifies the dynamic interactions of constituent populations and neurotransmitters, and provides quantitative understanding of how network dynamics generate the fine temporal architecture of sleep-wake patterning. Model solutions are compared to experimental recordings of rodent, feline and human sleep to determine mechanisms contributing to the differences in sleep-wake patterning observed in these multiple species. Results of the modeling studies identify limitations of each of the proposed network structures in accounting for various characteristics of sleep-wake regulation and will generate predictions suggesting how experimental approaches can refine our knowledge of the physiological network structure.